Mathematical Sciences Research Equipment 1989

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used to support three projects in the Institute for Applied Mathematics and Scientific Computing at Indiana University: Analysis and Computation of Turbulent Flows, directed by Ciprian Foias and Roger Temam; Numerical Studies of Collisionless Plasmas, directed by Robert Glassey; and Analysis and Computation of Discontinuous Compressible Flows, directed by David Hoff.